Computing with Persistent Stores of Scientific Objects

9224605 Grossman SDB: Computing with Persistent Stores of Scientific Objects This is the first year funding of a three-year continuing award. The objective of this project is to develop technology to enable scientists to make computationally intensive queries on very large amounts of data in an object store. The project consists of three closely related parts. The first part of the project consists of developing algorithms to store, access, and analyze objects distributed in a hierarchical storage system. The second part of the project consists of developing a suite of software tools for working with objects distributed in a hierarchical storage system. The third part of the project consists of using these tools to create and analyze several stores, including: an EventStore -- a store of proton collisions (events) generated by counter rotating proton beams in a particle collider and registered by a variety of sophisticated electronic equipment; a TrajectoryStore -- a store of trajectory segments describing possible flight paths of aircraft modeled by nonlinear systems; and a VortexStore -- a store of vortex solutions of modified Navier-Stokes equations. As a result of this project, scientists will be able to analyze data with object stores, even when the size of the data requires that the majority of the data reside in tertiary storage. ***